Extrinsic and Intrinsic Control of Neural Development

Normal function of the nervous system depends on the proper number of specific neuron types. This comes about during development through a complicated balance of cell generation and cell death. This project will investigate various factors that control these two processes, particularly the role of certain hormones. This project will result in a better understanding of how the nervous system develops.***//